Optimizing the Impact of Online Professional Development for K-12 Teachers (Resubmission)

Many changes in K-12 education have created an increased and critical need for effective
professional development for teachers. These changes include new standards; new
curriculum and assessments; changes in student demographics; advances in classroom
technology; and a growing shortage of qualified teachers. To address this need, many
educational organizations are turning to web-based, online professional development,
which can provide teachers with flexible scheduling and access to resources, mentors,
and peers that would not be available otherwise.

A significant body of research enables us to define principles of effective professional
development in face-to-face settings, and some research is available showing that online
courses can be effective at the college and high school levels. However, very little
research is available about the effectiveness of online professional development in which
the goals are to impact both the content knowledge and the classroom practices of K-12
teachers. The proposed project will begin to establish a solid research base about online
professional development by addressing three major questions, which fall under ROLE
Program Quadrant III, Research on STEM Learning in Education Settings:

1. What is the comparative impact on teachers' content knowledge and instructional
practices of alternative models of online professional development, face-to-face
models, and hybrid models that combine the two?
2. How do the types of interactions among participants and between participants and
workshop leaders differ across different online professional development models, and
are these differences related to participants' satisfaction, knowledge acquisition, and
changes in practice?
3. What are the factors that maximize the impact of online professional development on
teachers' content knowledge and instructional practices?

To address these questions, the project will develop and implement a series of contrastive
professional development workshops, including several online models, hybrid models
that integrate some face-to-face meetings into the context of online workshops, and a
more traditional onsite workshop model. The workshops will focus on topics selected
from the middle school mathematics curriculum, and seek to both deepen participants'
understanding of the mathematics and enhance their approaches to teaching this content.
Within each content area, the goals, learning activities, teaching approach, and time
requirements for participants will be held as constant as possible across workshop
models. Multiple measures, including assessments of participants' content knowledge
within the context of teaching tasks, participant surveys and interviews, analyses of
lesson plans and student work, classroom observations, student surveys, and discourse
analyses will be employed to address the three main research questions.

The results will inform educational policy makers, school and district administrators,
professional development providers, faculty in teacher preparation programs, and
teachers, as well as the research community.